Support for a Penrose Conference on Continental-Interior Tectonics, Cedar City, Utah, September 23-28, 1997

9705726 Marshak This action provides partial support for a Penrose conference entitled: Tectonics of Continental Interiors to be held September 23-28, 1997 at Cedar City Utah.